Discovery and Control of Altermagnetism in Two-Dimensional van der Waals materials

Non-technical Abstract: Magnetism shapes many of the technologies we use every day, including computer memory, sensors, navigation systems, electric vehicles, and medical imaging. Recent discoveries point to a new form of magnetism, called altermagnetism, that may enable future devices to move and store information faster and more energy-efficient than current approaches. However, this behavior has only been confirmed in a small number of bulk materials. This project addresses a major open question: whether this new form of magnetism can exist in materials that are only one or a few atomic layers thick. These atomically thin materials, often called two-dimensional materials, are important because their properties can be controlled by thickness, stacking, twisting, chemical design, and external fields in ways that are difficult or impossible in conventional bulk materials. Establishing altermagnetism in such materials can create new opportunities for low-power information technologies while advancing the fundamental understanding of how magnetism operates at the smallest material scales. The project also supports education and workforce development by training postdoctoral researchers, graduate students, and undergraduate students in materials synthesis, computational modeling, and advanced measurement methods. Public outreach activities connect this research to broader audiences through classroom engagement, hands-on demonstrations, visual learning activities, and accessible science communication.

Technical abstract: This project investigates the fundamental scientific question of how altermagnetism emerges and can be controlled in two-dimensional van der Waals materials from the bulk limit to the single-layer limit. The research focuses on three complementary approaches. First, magnetic atom intercalation is used to create altermagnetic states in layered transition metal dichalcogenides. Second, twisting magnetic bilayers is used to engineer symmetry conditions that promote altermagnetic order in moire superlattices. Third, Janus magnetic monolayers with intrinsic structural asymmetry are explored as a platform for realizing altermagnetism in the strict two-dimensional limit. The goals of the research are to identify the structural and magnetic requirements for altermagnetism, determine how dimensionality and symmetry influence spin-split electronic states, and establish experimentally verified two-dimensional altermagnetic materials. The research team integrates first-principles electronic-structure calculations, magnetic simulations, symmetry analysis, bulk crystal growth, selective atomic-replacement synthesis, deterministic stacking of magnetic bilayers, electrical transport measurements, magneto-optical characterization, and spin-resolved photoemission spectroscopy. The resulting theory-experiment framework establishes design principles for discovering and controlling altermagnetism in atomically thin materials and advances the broader field of spin-based quantum materials.